Intersegmental Coordination in Animal Locomotion

9410779 Friesen Many animal movements result from precise coordination between body parts. The two wings of a flying bird, the four limbs of a trotting mammal, and the undulations of a swimming fish are all common examples of the elegance of organized rhythmical movements. Coordination of limb movements and body musculature results from internal coordination between sets of neuronal oscillators that control individual appendages or segments. Neuronal oscillators are sets of nerve cells that interact with each other to generate rhythmic changes in the electrical signals of these nerve cells. Neurobiologists have learned a lot about how these individual neuronal oscillators work, but know little about how the oscillators work together to produce rhythmic movements. This proposal is to study how the interconnections between neuronal oscillators in the leech produce intersegmental coordination during swimming. Mathematical and computer models of intersegmental coordination of this well-characterized swim neural network will be developed. Because of the fundamental similarity of rhythmic movements in all animals, insights gained from this study on a complex, yet tractable, nervous system of a lower animal should be applicable to the more complex and less tractable nervous systems that produce rhythmic movements in higher animals.